Mid-Atlantic Mathematical Logic Seminar (MAMLS)

Abstract

Award: DMS-0137487
Principal Investigator: Arthur Apter

The Mid-Atlantic Mathematical Logic Seminar (MAMLS), formed in
the fall of 1982 under the aegis of Lee Stanley, has supported
3-4 regional meetings per year of 1-2 days' duration since then.
These meetings are held at various locations and cover a broad
spectrum of mathematical logic with particular emphasis on
complexity theory, theoretical computer science, fragments of
arithmetic, pure and applied model theory, proof theory,
recursion theory, set theory, subsystems of analysis in
accordance with the program of H. Friedman and S. Simpson, and
topos theory. NSF support is provided for some of the expenses
of the speakers and attendees, in particular of the graduate
students.

Via the meetings sponsored, the MAMLS grant maintains the
vitality of the field of mathematical logic. Special emphasis is
placed on enhancing the participation of younger researchers and
members of traditionally underrepresented groups, especially
women. This is done by providing an intellectual forum in which
all interested persons are invited to contribute and in which
there are lectures on current topics of research.
The Mid-Atlantic Mathematical Logic Seminar (MAMLS), formed in
the fall of 1982 under the aegis of Lee Stanley, has supported
3-4 regional meetings per year of 1-2 days' duration since then.
These meetings are held at various locations and cover a broad
spectrum of mathematical logic with particular emphasis on
complexity theory, theoretical computer science, fragments of
arithmetic, pure and applied model theory, proof theory,
recursion theory, set theory, subsystems of analysis in
accordance with the program of H. Friedman and S. Simpson, and
topos theory. NSF support is provided for some of the expenses
of the speakers and attendees, in particular of the graduate
students.

Via the meetings sponsored, the MAMLS grant maintains the
vitality of the field of mathematical logic. Special emphasis is
placed on enhancing the participation of younger researchers and
members of traditionally underrepresented groups, especially
women. This is done by providing an intellectual forum in which
all interested persons are invited to contribute and in which
there are lectures on current topics of research.